Seismic Velocity Structure of Hawaii from High-Resolution Seismic Refraction and Reflection Data

9530103 Moore This project will use seismic data collect on and offshore of southern Hawaii to determine the three-dimensional structure of Kilauea and Mauna Loa volcanos. Results will contribute to understanding the role of earthquakes in accommodating stress, and provide better constraints on historical earthquake data.